University of Colorado Workshop for College Teachers of Introductory Astronomy

9353926 Little A two-week workshop is being run for two- and four- year college teachers of introductory astronomy whose formal training is in fields other than astronomy. The workshop will offer laboratory work, both indoors and with sky observations, as well as offering practical examples of uses of astronomical materials in the classroom. The lab work will include astrophotography and the use of small CCD cameras. The workshop will also offer selected topics in current research in astronomy. ***